STTR Phase I: An Oleophilic Hydrophobic Magnetic (OHM) Sponge for Environmental Remediation

The broader impact of this STTR Phase I project is to develop an environmental remediation platform for oil spills and related contaminants in water bodies. Oil spills and associated heavy metals/toxins have significant economic, social, and environmental adverse impacts. The current state-of-the-art approaches are expensive, pose dangers to marine life, and/or generate physical waste. This project introduces a widely deployable sponge technology that attracts oil and resists water. It can selectively remove and recover oil from an oil/water mixture and is re-usable. The materials/methods in the proposed project are cost-effective, scalable, and ecologically friendly.

The intellectual merit of the proposed project is to advance a technology leveraging the interfacial tension at an oil-water interface. This project develops a nanotechnology-based simple and scalable sponge that can selectively sequester oil molecules and metal toxins from an oil-water interface. The proposed system coats commercially available sponges with a nanocomposite material. Activities include optimization of key factors affecting interactions between oil and metal toxins with nanocomposites coated on sponge pores and tailoring both the length-scale and chemical architecture for remediation applications.